Quantum Monte Carlo Methods for Predicting Electronic Structure

James Anderson of Penn State is supported by a grant from the Theoretical and Computational Chemistry Program to predict molecular structures and properties using quantum Monte Carlo methods. Applications of his fixed-node technique employing effective core potentials include metcars, fullerenes, and diamond. For test systems, all-electron calculations will be performed to assess the performance of the effective core potentials. Methodological developments consist of computing trial wavefunction corrections directly, and combining this correction method with the released-node technique. Practical, economical, and reliable methods for predicting molecular structure and properties are necessary in accurate models of combustion, materials, and biochemistry. Monte Carlo calculations have yielded the most accurate quantum mechanical results for small molecular systems, and thus provide reliable standards against which to test other computational methods in molecular electronic structure theory. This project will provide additional benchmarks and also develop more efficient Monte Carlo methods applicable to larger molecular systems.